Purchase of Computer Graphics Workstations and Fast Server for Chemistry Research

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of California in Irvine will purchase computer graphics workstations and a fast server. This equipment will enhance research in a variety of areas including 1) quantum simulations of spectroscopy and the determination of accurate interactions for large polyatomic systems; 2) development of new methods to process multi-dimensional NMR spectra; 3) prediction of reaction stereochemistry; 4) modeling of the pi-facial selectivity of the type 2 intramolecular Diels-Alder reaction; 5) molecular dynamics simulation studies of the temperature, hydration and environmental dependence of protein dynamics; 6) aromatic reactivity in chemistry & biology: ditryptophan crosslinking; 7) mechanism of indole and related dimerization reactions; 8) Thia-Sommelet sigmatropic dearomatization; 9) prediction and elucidation of stereochemistry: stereoselectivity of 5-membered oxonium ion reactions; and 10) organosilicon isomerization.

A workstation network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-art graphics and visualization facilities, and supports research in state-of-the-art applications of parallel processing.